Molecular Population Genetics of Coat-Color Variation in Pocket Mice

9981810
Nachman

The primary objective of the proposed research is to identify
mutations responsible for naturally occurring coat-color variation in
populations of light and dark rock pocket mice that live on light and dark
substrates. In particular, the proposed research will (1) document
variation in coat color of mice and environmental heterogeneity in soil
color for six paired localities in New Mexico and Arizona where each pair
consists of one light and one dark locality, (2) conduct a screen to
identify genes contributing to the observed phenotypic differences, (3)
characterize mutant alleles at the loci implicated in phenotypic
differences, and (4) characterize genetic variation at coat-color loci in
population samples from dark and light localities. Together, these studies
will (1) identify the number and relative effects of different genes
contributing to coat color variation, (2) determine whether pigmentation
differences are due primarily to structural changes, regulatory changes, or
both, (3) determine whether dark coat-color has evolved independently in
different populations, and if it has, determine whether the same or
different mutations are involved, and (4) determine the extent to which
selection at one site in the genome has shaped patterns of genetic
variation at linked neutral sites.
A central goal in biology is to explicitly connect genotype with
phenotype for traits that are ecologically important. This has been an
elusive goal because the genetic basis of most traits is not well
understood. Coat-color variation in rodents is a classic example of
phenotypic variation in response to local adaptation: in many species,
dorsal pelage color closely matches the color of the soil on which the
animals live. A century of research on the genetics of coat color in house
mice has produced a rich database of candidate genes and mutant effects.
The combination of striking phenotypic variation in coat-color of pocket
mice (Chaetodipus intermedius) and candidate pigmentation loci cloned in
the laboratory mouse presents an unparalleled opportunity to investigate
the genetic variation underlying a key morphological trait in nature.